Improvement of Botanical and Ichthyological Collections and Facilities for Molecular Research

The botanical and ichthyological collections at the University of Alabama are an important national and regional resource for education and research in environmental biology. This support will enable significant and needed enhancement of these collections and research activities through the provision of a mobile compactor system for the collections and research equipment for a new Molecular Systematics Laboratory. The collections and the laboratory will be housed in a new 17,000 sq. ft space within a new Scientific Collection Facility (112,000 sq. ft) being built by the University at a cost of $8 million, which will allow centralization of all University, Museum and Geological Survey collections and associated molecular research. This support will relieve collection crowding, provide for 5 years of collection growth, and considerably expand the educational and research potential of the new molecular laboratory.